Coastal Rural Systemic Initiative

Fayetteville State University, on behalf of a consortium of pre-college and higher education administrators and practitioners, has submitted this proposal to implement systemic reform strategies to improve science and mathematics instruction in forty-seven impoverished, rural school districts in the coastal counties of Virginia, North Carolina, and South Carolina. The project, called the Coastal Rural Systemic Initiative, will accomplish its goals by workshops and on-site technical assistance to teachers and administrators that will increase the understanding of instructional reform and the capacity of the districts to accomplish the reform. The initiative will operate through regional facilitators who will develop and administrator activities such as: curriculum institutes and on-site support; program improvement reviews; school renewal conferences; leadrship institutes and on-site facilitation; community education foundations; collaborators conferences; and formal partnerships with other education reform sponsors.